Cognitive Science Workshop to be held April 1991, in Washington, D.C.

A workshop will be held April 20-21, 1991, in which researchers from the various fields of cognitive science will discuss current and prospective lines of research in cognitive science, resulting in a report that will advise NSF personnel regarding ways in which scientific progress can be facilitated productively by new or continuing NSF activities and support.